Public Opinion, Voting Analysis and The Crisis of Democratic Consolidation in Nicaragua: The 2006 Election

This research involves the conduct of a public opinion study of the Nicaraguan
national elections to be held in November of 2006. It builds on the authors' previously
published analysis of national presidential elections and regime transition in Nicaragua
from 1990 through 2001. That study, Learning Democracy: Citizen Engagement and Electoral Choice in Nicaragua 1990-2001 (University of Chicago Press, 2005), was supported in part by NSF funding.
The previous study examined the capacity of the poor and poorly educated Nicaraguan
electorate to engage in reasoned vote choice amidst severe systemic crisis that threatened
their everyday lives. In doing so, it looked extensively at citizen attitudes and evolving
vote intent during the 1990 presidential election in which the two major candidates
proposed different regime directions to resolve the systemic crisis, which included civil
war, economic embargo and economic deterioration. The study then analyzed the processes
through which the new conservative democratic regime addressed the crisis and the voting
behavior through which citizens reaffirmed its hold on power in the 1996 and 2001
elections. Across the three elections, the study documented the sophisticated reasoning
capacities -- both retrospective and prospective -- that Nicaraguans brought to their vote
decisions. These findings suggest that such citizens may be more capable of democratic
citizenship than dominant public opinion studies suggest, even when faced with system
crisis.
The current study returns to Nicaragua in 2006 to examine citizens'
decision-making capacities as the nation faces new crises -- issues of constitutional
authority, power usurpation, party system upheaval and electoral manipulation -- that
could derail democratic consolidation. At issue is the ability of the voting citizenry to
comprehend and respond to institutional/procedural crises that are relatively removed from
their everyday lives but can nevertheless have disastrous consequences for them and the
democratic structure of their nation. The study thus speaks directly to the roles that
third-world voters can play in struggles for democratic consolidation as their nations
move beyond the initial transition to electoral democracy and confront the 'dark and
hidden side' of democracy, including parliamentary intrigue, complicated struggles over
constitutional power, and electoral and party rules that can inhibit rather than foster
responsive democratic choice.
The investigation examines citizen attitudes and vote decision
making across the six months prior to the November elections and during the weeks
following them. Surveys are national in scope.
The proposal's intellectual merit lies in addressing a core puzzle in survey research that
has received scarce attention: the capacity of poorly educated third world citizens to
reason in their vote decisions in systematic ways analogous to voters in established
democracies.

Broader impacts include (1) clarifying for national policy makers the
expectations they can hold of third world citizens as they craft policies in support of
democratization;(2)fostering reassessment of views that stress the limited decision
capacity of poorly educated citizens in an established democracy, including among ethnic and racial minorities; and (3) spurring rigorous public opinion research by other scholars and advanced doctoral students into vote decision making by third world citizens and poor
citizens internationally.